Presidential Young Investigator Awards

This PYI will investigate application of expert system knowledge to structural engineering analysis and modeling life-cycle computer-aided support for design, fabrication and construction of buildings and bridges.